Polyhedral Methods in Combinatorial Optimization

The use of polyhedral methods in integer programming has proven to be significant both on theoretical and a practical grounds. The scheduling of airline crews is a typical example of an important problem which seeks better solutions and is dependent upon advances in the field. Professor Cook will investigate new polyhedral results which currently appear to offer significant potential for major breakthroughs.